Asymptotic Methods in Infinite Groups and Algebras

The PI intends to study Golod-Shafarevich groups and algebras and their
interactions with amenability and tau-property. The PI will also continue
his work on linearity of free pro-p groups and Jordan superalgebras.

The expected results of the project will affect several branches of
Algebra, Topology and Theoretical Computer Science. The new areas of
algebra that will hopefully evolve from the work on the project will create
good research opportunities for young mathematicians and provide
excellent material for graduate courses.